Dissertation Research: High-Speed Laser Scanning Fluorescence Microscope. Improve Spatial Resolution, Scanning Field Size and Sensitivity

This proposal documents an instrumental improvement important in the dissertation research of Andrew Bullen. This research examines the conduction and integration of electrophysiological signals in the dendrites of cultured mamrr~ CNS neurons using fast optical recording techniques. Andrew is a student at the University of Pennsylvania School of Medicine who is undertaking his doctoral research at Baylor College of Medicine in order to exploit the unique instrumental resources available in the laboratory of Dr. Peter Saggau. The primary instrumental resource used in these investigations is a novel High-Speed Laser Scanning Fluorescence Microscope previously developed in Dr Saggau's lab. The bandwidth of this system (200,000 points/second) is considerably greater than existing scanning microscopes. This bandwidth is achieved through the incorporation of acoustic-optic deflectors as its only scanning mechanism. This instrument was previously used to record from brain slices (Saggau et al., 1990). This microscope has been further developed for simultaneous multisite recording from two fluorescent indicators in the dendrites of mammalian CNS neurons. These modifications have allowed studies of neuronal integration within a single cell and investigations of signaling between cultured neurons (Bullen & Saggau, 1994). These studies employed voltage-sensitive dyes and calcium indicators, but other probes are planned for future experiments. Notwithstanding its fast scanning rate and large bandwidth, the current system has several limitations that have been highlighted by these recent experiments. These limitations include modest spatial resolution, small scanning field size and poor signal-to-noise ratio in fine neuronal processes. A simple improvement is proposed to overcome these limitations and further enhance the performance of this instrument. By replacing the existing acousto-optic deflectors with equivalent devices able to produce more spots (70 vs 10 spots) over a larger initial deflection angle (40 mrad. vs 5 mrad.), the scanning field size will be significantly enlarged and the relative spatial resolution improved. The absolute spatial resolution will also be increased because the net spot size will be smaller (2 ~m vs 10 llm). Furthermore, the smaller spot size will enhance the signal- to-noise ratio and allow events of smaller magnitude to be resolved. These irnproved deflectors will also provide homogenous illumination and thereby facilitate a uniform signal-to-noise ratio throughout the scanning field. The proposed change can be implemented without compromising the existing bandwidth of the system or any major structural alterations. In summary, a minor change to an existing High-Speed Laser Scanning Fluorescence Microscope is proposed. This modification will make this instrument more sensitive and able to sample a larger area with greater spatial resolution. The impact of these features will allow simultaneous mulitsite optical recordings of small events from fine neuronal structures. Measurements of this nature were not previously possible and should significantly advance the understanding of information processing in the dendrites of mammalian CNS neurons. NSF FORM 1358 (1/94)